Public Domain Molecular Software

The principal investigator will be developing menu-driven biomolecular computational software with graphics interfaces to run on low-end and high-end workstations, conventional supercomputers and massively parallel supercomputers. The software with code will public domain.